Design and Implementation of Component-Oriented Programming Languages

A thorough investigation of componene-oriented programming languages
is undertaken that entails (a) designing a component-oriented language,
(b) implementing it efficiently on modern computer architectures, and
(c) ensuring its applicability through case studies.
Design of the new language entails evaluating the suitability of
existing programming-language concepts for component-oriented
programming, specifying and evaluating new programming-language
features, and integrating the new and the old into a coherent new
language. Implementation involves assessing existing compiler
technology, proposing, building, and evaluating new compiler
mechanisms, and merging them into an efficient compiler and runtime
system. Finally, to ensure the language's applicability, a variety of
case studies are designed and implemented and the resulting systems
compared to more traditional solutions.